Precession Camera for X-Ray Crystallography in UndergraduateChemistry Courses and Research Projects

The undergraduate chemistry program at Bucknell University will be enhanced significantly by providing students with laboratory experience in crystallography. This project will install an X-ray generator and a precession camera with Cu and Mo sources. The precession camera will be used at all levels of undergraduate instruction for projects not previously possible. In general chemistry, a library of precession photographs and exercises will be generated to enable students to visualize the reciprocal lattice and crystal symmetry elements. In physical chemistry laboratory, undergraduates will obtain their own precession photographs and assign space groups. In undergraduate research, students will derive unit cell parameters and assign space groups for their own syntheses, preparatory to full single crystal structural determinations.